Improving and Implementing Technology in Calculus with Advanced Placement Teachers: A National Force for Change

Clemson University Foundation will conduct a four-year program to develop materials that can be used to train AP calculus teachers and to help them successfully implement the use of graphing calculators in their calculus instruction. Four sets of materials will be developed: a) a set of references, b) a set of workshop materials, c) a set of instructional examples, and d) a set of prototypic test items. Criteria for which areas of calculus materials will be developed are the importance of the calculus concepts in the AP calculus syllabus, instruction of the concepts may be significantly changed when graphing calculators are used, and the set of currently available reference materials does not sufficiently explore the use of graphing calculators in teaching the concepts. Clemson University, as the site of the AP Calculus reading, will use the materials developed to create a cadre of 350 high school and college mathematics teachers, themselves AP calculus readers, who will be trained and well-equipped as a national team of AP Calculus workshop leaders. The training will consist of 9 days of summer institutes held over the four year period. It is anticipated that in the next four years, these workshops leaders will deliver over a thousand workshops for approximately twenty thousand second-wave calculus teachers. The emphasis is on the implementation of the graphing calculator in calculus curriculum because the AP Calculus Committee of the College Board has issued policy statements to the effect that beginning in May 1993 (May 1995), both the Calculus AB and Calculus BC examinations will contain questions for which a scientific (graphing) calculator is necessary of advantageous. Clemson University, the College Board, Educational Testing Service, Hewlett Packard, and Texas Instruments cost-sharing account for 119% of the NSF budget. The project has the potential for improving the conceptual and problem-solving content of existing high school calculus courses through enhancing calculus teachers' capacities to incorporate computing technologies into their courses. If any institution can have an impact on introducing technology into the teaching of secondary school calculus, it may well be the College Board. And Dr. Kenelly's connections with the AP Program and his long experience with the College Board are key strengths of this proposal.